III COR: Query Evaluation and View Materialization in Probabilistic Data

Query Evaluation and View Materialization in Probabilistic Data
PI: Dan Suciu (U. Washington)
Award: IIS-0713576

Databases and data management tools have a deterministic semantics: a data item
either is in the data set or is not. But when data comes from multiple sources,
or is extracted automatically, it often contains a variety of imprecisions that
are difficult to model using the standard deterministic semantics: the same
data item may have different representations in different sources
and matching algorithms are imprecise; schemas differ across sources and
schema matching tools are imprecise or incomplete or both; data at different
sources may hold contradictory information; finally, some data, such as sensor
data, is inherently probabilistic and hence imprecise. This project represents
all sources of imprecision in a single uniform way, as data with a probabilistic
semantics, and extends today''s data management tools to manage efficiently
data with probabilistic semantics.

Re-designing databases to handle probabilistic data is a daunting task.
This project studies two problems that lie at the core of probabilistic
data management: the complexity of the query evaluation problem on
probabilistic databases, and the view materialization problem
(deciding whether a view can be materialized and whether it can be
used in other query plans). The results of this research will consists
of a range of fundamental techniques to be used in a general purpose
probabilistic query processor.

Intellectual Merits. The project makes new contributions that lie
at the intersection of several disparate fields: logic, probability theory,
knowledge representation, and traditional query processing and optimization.
The project enhances the understanding of the query evaluation problem on
probabilistic data, develops new algorithms for efficiently evaluating
such queries and for materializing views, while leveraging existing database
technology.

Broader Impact. Searching large information spaces (the Web; large collections
of scientific databases; Homeland Security data) is one the new and most
challenging frontiers in Computer Science. The innovation that is needed
to support complex searches that scale to large and heterogeneous
information spaces, has to come from the data management research community.
This project makes contributions to broaden our ability to search large
information spaces. If successful, the project will be one of the pieces
that will help data management technology undergo a new paradigm shift,
from supporting complex queries with deterministic semantics,
to supporting complex explorations with probabilistic semantics.

Project URL:
http://www.cs.washington.edu/homes/suciu/project-probD